Symposium Proposal: Scanning Probe Microscopy of Polymers"; The 220th American Chemical Society National Meeting; August 22-26, 2000; Washington, DC

0072295
Tsukruk

This Conference on Scanning Probe Microscopy in Polymer Science at the August 2000 Meeting of the American Chemical Society will introduce the latest developments in this rapidly growing field. It will include a large number of speakers from all over the world. Funding is provided to enable young investigators (new PI's, students) to attend.